Mandatory and Discretionary Access Control in Object-Oriented Database Management Systems

9303416 Jajodia This is the first year funding of a three-year continuing award. The goal of this project is to investigate issues related to both mandatory and discretionary security in object-oriented database systems. The database security model, called the message filter model, proposed recently by Jajodia and Kogan is used as a departure point for this research. The chief advantages of the message filter model are its compatibility with the object-oriented data model and the simplicity with which security policies can be stated and enforced. Topics that are being investigated include: (1) how multilevel entities can be modeled in the message filter model, operational semantics of update operations, and implementation of a secure garbage collection mechanism that does not have to be trusted; (2) how the conflict between integrity and secrecy requirements can be overcome using the object-oriented approach; and (3) how the message filter model can be extended to incorporate discretionary controls. Access control is a crucial functionality for any data management system. This research will lead to a security model specifically targeted to object-oriented database systems, without compromising the advantages provided by the object-oriented approach over conventional approaches. ***